PECASE: An Empirical Investigation of the Dynamics of Measurement-based Admission Control Algorithms Within an Economic Framework

Abstract On today's Internet, packets are delivered in a best-effort manner. The Internet Engineering Task Force (IETF) is standardizing support for realtime packet delivery on the Internet. The viability of relaxed, as opposed to hard guarantees, realtime services depends fundamentally on the ability of its measurement-based admission control algorithms to determine which connection can be admitted to the network without violating service specifications. Previous research has demonstrated the viability of measurement-based admission control algorithms and relaxed realtime services. However, two important questions remain. First, independent of any specific algorithm, what traffic characteristics can serve as primary indicators to guide the setting of an algorithm's parameters? Second, can global inefficiencies resulting from the local nature of independent admission decisions be minimized? This research proposes to use equivalent token-bucket filter of aggregate traffic to guide the setting of the admission control algorithm's parameters, and to apply a market-based approach to global resource allocation. While there is a sizeable body of literature in the application of market-based control to the allocation of computing resources, no previous work on distributed resource allocation that involves multiple resources and takes into account transaction costs, i.e.~the cost to negotiate and execute a transaction, has been reported. Further information on this project is available from http://irl.eecs.umich.edu/jamin/research/CAREER.html.